Comparison of the Behavior of Human and Robot Traders in a Computerized Double Auction Market

This project conducts a series of human double auction market experiments to generate a matching data set for a tournament of "robot traders" who compete in an artificial double auction market. The double auction market is a simplified version of the AURORA electronic double auction market recently developed by the Chicago Board of Trade. Precise comparisons will be made of the behavior of human and robot traders. Existing experimental data on human double auction markets are not directly comparable to the computerized market because the latter divides time into discrete bid-offer and buy-sell steps, and adopts a new institutional design, Chicago Rules, that allows only holders of the highest outstanding bid or lowest outstanding offer to execute transactions. The project uses the experiments to study the impact of Chicago rules, the effects of variations in period length in a market with discrete trading intervals, and the consequences of restrictions on the messages that can be transmitted and received by traders. The results of this research will improve experimental methods and our understanding of widely used market institutions. By matching human experimental data with the results from the tournament of computerized robot traders, the project will be able to provide strong tests of the ability of "artificially intelligent" agents to mimic the behavior of human traders in Double-Auction markets. If computer simulations could complement human experiments, this would dramatically increase the number and type of experiments that investigators could use to study the effects of institutional changes. The results of the experiments should also provide new insights into the performance of double auctions. This is important because the double auction is the type of trading institution used by the Chicago Board of Trade, the New York Stock Exchange, and many other securities and commodities exchanges throughout the world.